Neutrino Astronomy: DOM Utilization and AMANDA II Activities

Dr. Smoot request funding for studying neutrino physics with AMANDA II detector. Dr. Smoot will develop tools to handle complex data sets, distribute many levels (raw, filtered, reconstructed, ...) of the data, monitor the instrumental performance (extensive studies will be carried out to evaluate the performance of the digital modules developed by Dr. Smoot and his LBNL co-workers), and provide data bases critical to the scientific analysis of these data. He will also produce simulations to improve the understanding of the instrumental performance and capabilities.